Chern-Simons Theory, and Its Limiting Geometry and Topology

DMS-0203129
Stavros Garoufalidis

Stavros Garoufalidis plans to study applications of quantum field theory
to 3-dimensional topology and geometry. This work is motivated by
the Chern-Simons path integral, its exact computation (in terms of
quantum invariants of knots and 3-manifolds) and its perturbative expansion.
Quantum field theory predicts that invariants of knots and 3-manifolds which
are defined via cut-and-paste topology carry geometric information of the
underlying structures; in particular of the fundamental group of a 3-manifold
and its representations to Lie groups. A key question is to recover the
geometric information (described in terms of surgery theory or Riemannian
hyperbolic geometry) by taking an appropriate limit of quantum invariants.

The above mentioned relation between physics and mathematics has deep roots
in the past century. Mathematics has strongly influenced Physics, as is
evident from the development of Mechanics, Quantum Mechanics and General
Relativity, which describe our world in three quite different scales.
Knotedness is a fundamental property that binds fundamental particles
together, but also the DNA molecule.
The most recent interaction between 3-dimensional quantum field theory and
topology aims at describing knotedness in terms of geometric and
topological language. Topology could be a unifying language to describe
the building blocks of physics, but also of life itself.